CU-UC Membrane Applied Science and Technology (MAST) Center: A Multi-University I/U CRC Five-Year Renewal

The multi-university Industry/University Cooperative Research Center for Membrane Applied Science and Technology at the University of Colorado Boulder and the University of Cincinnati addresses research in membrane technologies in meeting the separation needs of a broad range of critical industries including chemical, petrochemical, energy, pharmaceutical and water. The Center will continue to focus on research of membranes, micro-porous thin films, and thin film barrier layers. This I/UCRC will continue to significantly enhance the research database available for the disciplines involved with membrane technologies.